Equivariant Gauge Theory on 3-Manifolds

Proposal: DMS-0071480
PI: Nikolai Saveliev

A major obstruction to using the Floer homology to study 3-dimensional
manifolds is the lack of clear understanding of its behavior with respect to
the standard constructions of 3-dimensional topology, such as Dehn surgery,
connected sums etc. The known results in this direction have not made much
of headway in Floer homology computations or applications. The main thesis of
the investigator is that the operation with respect to which the Floer homology
behaves most naturally is the branched covering. Therefore, the investigator
studies gauge theory on 3-manifolds with group actions and relates
gauge-theoretical invariants to the classical invariants of the branch set.
As an example, his previous study of equivariant gauge theory on the links of
quasi-homogeneous surface singularities has led to a closed form formula
expressing their Floer homology in terms of classical invariants. The
investigator introduces and studies an equivariant Casson invariant for an
integral homology sphere with a cyclic group action and relates it to the
classical Casson invariant and the knot signatures. The definition makes use
of the equivariant gauge theory and, in particular, of the equivariant Floer
index. The latter is closely related, in the case of anti-holomorphic
involutions, to the topology of Stein surfaces and the non-compact Kaehler
geometry. The investigator also continues his study of the links of complete
intersection singularities, and the relevance of the equivariant Casson
invariant to homology cobordisms and the triangulation conjecture for
topological manifolds in dimensions five and higher.

The research is a study of 3- and 4-dimensional manifolds by the methods of
gauge theory, coming from theoretical physics. In the last two decades, these
methods brought new life into the classical low dimensional topology, leading
to many spectacular developments and to the solutions of many difficult
problems. The area was revolutionized to the point that the state of knowledge
of two decades ago looks now, in many aspects, like a desert of nearly
complete ignorance. Manifolds of dimension four were the ones that benefited
the most: gauge theory methods worked very efficiently in this setting. At
the same time, their analogue in dimension three, which is known as the Floer
homology, is yet to reveal its full potential. The Floer homology is in the
focus of investigator's research efforts.